Proposed Regional SSI Conference (Louisiana, Arkansas, Texas, South Carolina, Georgia, Florida, Virginia, Kentucky, North Carolina, and Puerto Rico)

9452996 Davidson This proposal will fund a multi-state invitational conference on systemic reform in Fall 1994 at New Orleans. The theme of this two-day conference is "Unconventional Partnerships to Sustain Systemic Reform of Mathematics and Science Education". Between 500-600 key policy-makers, SSI and USI leaders from Louisiana, South Carolina, Arkansas, Kentucky, Georgia, Florida, Virginia, North Carolina, and Puerto Rico will be invited to attend. ***